Adapting WeBWorK Internet-Based Gateway Exams and Maple PowerTools to Introduce Appropriate Use of Technology in the First Two Semesters of Calculus

Mathematical Sciences (21) The Department of Mathematics at Pacific Lutheran University is introducing the use of Maple and WeBWorK into its first two calculus courses to increase student engagement and lay stronger conceptual foundations for subsequent courses. Contributions from the PowerTools page on the Waterloo Maple website are being adapted for use by students to explore, to visualize, and to generate conjectures. The WeBWorK program, developed at the University of Rochester (see DUE-9950567 and 0126940), is also being used to provide online feedback to students on homework exercises. A key feature of this project is the systematic approach used by the entire department to establish shared learning goals for students and to employ technology in pursuit of these goals. Training workshops are featured not only for mathematics faculty, but also faculty in allied disciplines.